Shipboard Scientific Support Equipment: Oceanography Cable

The University-National Laboratory System (UNOLS) fleet of research vessels, operated by academic institutions, provides support services to those NSF sponsored researchers who require time at sea to complete their investigations. All of these ships use oceanographic cable as part of this research support. Arrangements have been made which allow bulk purchases of cable resulting in considerable cost savings. Sixteen reels of cable will be purchased. The cable is stored until needed by ship operators at the Woods Hole Oceanographic Institution (WHOI) on the east coast and at the Scripps Institution of Oceanography on the west coast. Mr. Donald A. Moller, Marine Operations Coordinator, WHOI, will manage this project.